Equipment: Ocean Instrumentation 2023

Requests are made by the University of Washington for Oceanographic Instrumentation (OI) on R/V Thompson, a 274-foot general purpose, global class research vessel, and R/V Rachael Carson, a newly outfitted 72-foot coastal research vessel, both operated by University of Washington as part of the US Academic Research Fleet (ARF). In 2022, Thompson completed 268 funded days with 176 (66%) of them for NSF. For 2023, the vessel is scheduled for 315 total days with 180 (57%) days for NSF. Carson had 125 days in 2022 with 53 (42%) for NSF. For 2023, there are 68 days scheduled, 27 (40%) of which are for NSF.

With this proposal, UW provides technical descriptions and rationale for the acquisition of the following Oceanographic Instrumentation:

1) Kongsberg EM2040 Multibeam System for R/V Rachel Carson $217,371
2) Kongsberg EK80 Echosounder System for R/V Thompson $304,301
$521,672

Broader Impacts

The principal impact of the present proposal is under Merit Review Criterion 2 of the Proposal Guidelines (NSF 19-602). It provides infrastructure support for scientists to use the vessel and its shared-use instrumentation in support of their NSF-funded oceanographic research projects (which individually undergo separate review by the relevant research program of NSF). The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers.